Structure of the Neutron and Few-Body Nuclear Systems with Electron Scattering

9511192 Petratos Research will be carried out in high energy electron scattering reactions centered on the study of (1) nucleon charge, magnetization, and spin structure, and (2) the short-range structure of few-nucleon systems. Research in these areas will advance our understanding of the quark and gluon structure of these systems. These topics are high priority activities in contemporary nuclear physics. The work will be carried out at the SLAC and CEBAF electron accelerator laboratories. Development, construction, and utilization of major state-of-the- art equipment, including a plastic scintillator hodoscope for the CEBAF Hall A spectrometer, is integral to this activity. Education of graduate and undergraduate students and postdocs is a strong component in every aspect of this grant for this Kent State University researcher. ***